Use of a Supercomputer For Nonlinear Analysis and Optimal Design of Dynamic Mechanical Systems

Research involving the nonlinear analysis and optimal design of both two- and three-dimensional dynamic mechanical systems is in progress. The nonlinear analysis procedure uses a finite element technique incorporating material and geometric nonlinearities, handles vibrational effects, and includes coupling of deformations. Since the nonlinear analysis procedure is very complex, the research also involves developing an efficient optimal design approach using an optimality criterion technique to reduce computation time. Nevertheless, the combined analysis-design procedure still requires an enormous amount of computer time on the IBM 4341 currently available. Although a separate computer will soon be available for this research to develop and run small- to medium-size programs, access to a supercomputer will be provided so that the large programs that will eventually result from this research can be run.